Symposium: Responsive and Interactive Polymer Materials and Multicomponent Systems

CBET-0839994
Minko

The objective of this proposal is a support for the Symposium of the American Chemical Society Division of Polymeric Materials:Science and Engineering titled "Responsive and interactive polymer materials and multicomponent systems" which will be held in the frames of 236th ACS National Meeting in Philadelphia, August 17-21, 2008.